New Generation Multithreaded Multiprocessors

This project is experimenting with languages, compilers, and architectures for large-scale multiprocessors based on functional programming and single assignment data structures. The project includes work at USC on translators for functional languages, and work at the University of Delaware on architectures and simulations. The key insight motivating the work is that functional programming can increase performance of multithreaded systems. One increase of performance comes from the ability to move threads among processors. Another is the possibility that single assignment data structures can be cached with no need for coherence traffic, potentially increasing performance of parallel systems. Research will include development of a program execution model and memory model, design of a cache management protocol for single-assignment data structures, translation of benchmarks such as SPLASH 2 into a functional language, and simulation of the benchmarks running on the new execution model with cache protocol. The goal is to measure the extent to which the new models and cache protocols provide a performance advantage over execution models that permit multiple assignments. This project is experimenting with languages, compilers, and architectures for large-scale multiprocessors based on functional programming and single assignment data structures. The project includes work at USC on translators for functional languages, and work at the University of Delaware on architectures and simulations. The key insight motivating the work is that functional programming can increase performance of multithreaded systems. One increase of performance comes from the ability to move threads among processors. Another is the possibility that single assignment data structures can be cached with no need for coherence traffic, potentially increasing performance of parallel systems. Research will include development of a program execution model and memory model, design of a cache management protocol for single-assignment data structures, translation of benchmarks such as SPLASH 2 into a functional language, and simulation of the benchmarks running on the new execution model with cache protocol. The goal is to measure the extent to which the new models and cache protocols provide a performance advantage over execution models that permit multiple assignments.